SBIR Phase I: A Study of the Impedance of Semiconducting Metal Oxide Films for Sensor Applications

*** 9761431 LeGore Sensor R&D Inc. will study the feasibility of a novel class of highly sensitive and selective in-situ sensors which can be applied to detect toxic gases. These sensors will combine the portability and low cost of the chemiresistive Taguchi sensor, with the sensitivity and selectivity of laboratory techniques such as gas chromotography and chemiluminescence, to produce a product with significant market potential in applications such as emission monitors, process control sensors and environmental sensors. ***